SBIR Phase II: Impact Bonding of Near Net-Shaped Ceramics to Metals Driven by Hydrogen Produced from Rapid Oxidation of Aluminum

This SBIR Phase II project will create an industrial process for bonding ceramics to metals at the molecular level. Attempts thus far have not been successful in creating robust bonds due to incongruities of the materials being bonded. The objective of this project is to develop a sophisticated, computer controlled, automated bonding machine that will rapidly and safely impact-bond net-shaped ceramic carbides to tool steel in configurations that were previously not available. An automated bonding machine will allow for a cost-effective way to rapidly produce high quality near-net or net-shaped parts. It is expected that as this simple method is popularized, new opportunities for design configurations will be realized in multiple industries; as single parts can take advantage of the properties multiple material, such as the strength and wear resistance of ceramics, with the properties of another, such as the light weight properties of aluminum. Engineers may incorporate cheaper, lighter, stronger, and multipurpose material parts into new product designs. For instance, many new ceramic and metal bonded parts may be fabricated for the automotive, aerospace, chemical, defense, excavation, and nuclear industries. This project will ultimately result in the creation of U.S. manufacturing, sales, and engineering jobs as the mass production of ceramic and metal bonded parts become commercially available.

The impact-bonding occurs within a bonding machine and uses a portable and very powerful cartridge technology recently developed by the PI, an expert in aluminum/water reactions. The cartridges are initiated in an enclosed chamber with a low voltage, which causes the disassociation of water molecules and rapid oxidization of aluminum that generates very high-pressure hydrogen in a safe and controlled manner and without the use of high voltage, explosives or flammable gun propellants. Key technological subjects of this research include the impact-energy, generated hydrogen propulsion, and the post-bond impact-energy absorption. The goal is a manufacturing process that will produce dissimilar material composite parts with superior joint strength that will survive impact-fatigue-cycles in harsh environments such as mining, demolition, excavation, construction, oil gas drilling, and many more potential industries. Other mechanical methods of joining ceramics and metals, such as brazing and adhesives, have not sustained impact fatigue cycling. The superior products are wear resistant and will benefit several industries to include the cutting tool market, electrical and thermally insulated components, ballistic armor, and others. This project aims to produce pioneering publications on impact bonding ceramics and metals and will also further enhance the knowledge of high-velocity impact bonding systems.